Regional Workshop on Photochemistry, Photophysics and Spectroscopy in Organized Media; Cordoba, Argentina, May 25-28, 2001

0100813

Garcia-Garibay

This award co-sponsored by the Division of International Programs and the Division of Chemistry will support a Regional Workshop on Photochemistry, Photophysics, and Spectroscopy in Organized Media to be held in Cordoba, Argentina on May 25-28, 2001. The workshop is organized by Dr. Miguel A. Garcia-Garibay of the University of California, Los Angeles and Professor Pedro F. Aramendia at the Universidad de Buenos Aires in Argentina.

The workshop will afford 18 U.S. scientists the opportunity to interact with 18 counterparts from Central and South America. It will serve to bring together major researchers in the area of photochemistry, photophysics, and spectroscopy, to explore new directions influenced by the interaction between light and matter in various materials systems. Young researchers from the U.S. and Latin America will comprise a significant number of the attendees.

This workshop will focus on studies of solids, thin films, supramolecular aggregates, and other non-fluid systems that have important applications in the fields of materials science and engineering, photonics, sensors, and molecular computing.
-